Long & Medium-Term Research: Detecting Mixing Effects in the Luminol Chemical Oscillator with CARS

Long- & Medium-Term Research: Detecting Mixing Effects in the Luminol Chemical Oscillator with CARS This award is made under the Program for Long- & Medium-Term Research at Foreign Centers of Excellence, which enables U.S. scientists and engineers to conduct three to twelve months abroad at research centers of proven excellence. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Christopher John Doona of Brandeis University with Dr. Friedeman W. Schneider of the Institut fur Physikalische Chemie der Universitat Wurzburg, Germany. The researchers will examine the luminol oscillator for the effects of imperfect mixing with Coherent Anti-Stokes Raman Spectroscopy (CARS). The crossed laser system used in CARS enables small, discrete regions within a reactor to be examined independently. A complete mapping of the mixing profile in the reactor thus can be determined. Mapping mixing with CARS in a nonreactive system is done only at Wurzburg. This proposal will extend this technique to the reactive luminol system, and will be helpful in understanding mixing effects in other systems and in the modelling of exotic dynamic behavior such as chaos. The award recommendation provides funds to cover international travel and a flat administrative allowance of $250 for the U.S. home institution.